Student Travel Grant: 2003 American Control Conference

Intellectual Merit: The purpose of this project is to provide financial assistance to
engineering students to attend the 2003 American Control Conference (ACC 2003),
sponsored by the American Automatic Control Council. The focus of the conference will
center on theoretical issues, engineering methodologies, and industrial applications in all
areas of control research and development.
The primary goal of this project is to expose students to current advances in control
theory and applications. As part of a new initiative, the PI will organize student-oriented
sessions for ACC 2002 to help these future professional engineers prepare for their
careers. Travel support for student attendees, in the form of ACC 2003 Student Travel
Grants, will be advertised nationally. Women, minorities, and disabled students will be
especially encouraged to apply.
Broader Impacts resulting from the Proposed Activity: Graduate students who
attend the conference and participate in the student-oriented activities are likely to
pursue careers in the field of control theory and its applications.